Moduli of Azumaya algebras, vector bundles and applications

This project is devoted to the study of moduli spaces of Azumaya algebras
over surfaces. As a first step we construct compactifications. A
generalized Azumaya algebra is a perfect object in the derived
category of the surface, endowed with a multiplication. It turns out
that these objects can be used to give completely canonical
compactifications. There is also a natural way to define stability of
generalized Azumaya algebras (depending on some auxiliary
choices). The result is what we would like to call a GIT stack
compactifying the moduli space of Azumaya algebras. The project
proposes to study these spaces and to use them to define ``Donaldson
type invariants''. In addition the geometry of the moduli spaces will
be studied for particular types of surfaces, e.g., elliptic surfaces
and K3 surfaces.

A complex projective surface can be viewed as a 4 dimensional space
which is endowed with a lot of additional structure. The most
important of these is a choice of a rotation map on the tangent
spaces; it is a rotation over 90 degrees. A lot of research has been
done to classify four dimensional spaces which are endowed with such a
structure. This is usually done by defining invariants (for example
numbers) of complex projective surfaces which can be used to tell them
apart. A very basic example are the Betti numbers, which are
dimensions of cohomology groups. To give you an idea, an element of
the second cohomology group corresponds to a 2 dimensional subspace of
the 4-fold. Of course we are not simply enumerating these; we use a
coarser equivalence relation (deformation equivalence).
Here is a question: How many of these 2 dimensional subspaces have
the property that the tangent space at any point is preserved by the
rotation that defines the complex structure on our 4-fold? Such a
subspace is called a complex curve on the complex surface. This
question has been much studied, and is related to the Hodge
conjecture. However, in this project we go the other way. Namely, we
look at other objects: Complex projective bundles over our 4-fold
determine a degree 2 cohomology class as well, and they are typically
not those which can be represented by complex curves. It turns out
that by looking at all possible complex projective bundles
representing the given cohomology class we get a new space which, if
we can understand it, tells us a lot about the original 4-fold. All
kinds of new invariants of the original complex projective surface can
be defined in terms of these moduli spaces. It is the geometry of
these moduli spaces that will be studied in this project. There is a
lot of techincal machinery that has to be developed before we can
begin the exploration of more geometrical properties and part of the
project will be devoted to developing this machinery.